U.S.-France Cooperative Research: Specifying and Finding Solutions to Constraint and Search Problems (with INRIA)

This three-year award will support U.S.-France cooperative research in theoretical computing and programming languages between research groups at the University of Illinois and at INRIA (the French National Institute for Research in Computer Science and Applied Mathematics). The U.S. investigators, Edward Reingold and Nachum Dershowitz, propose to collaborate with Claude Kirchner and Michael Rusinowitz at INRIA/Lorraine and with other researchers at the University of Nancy and the French Center for Research in Informatics at Nancy. Their research deals with problems in term rewriting and search techniques and in solutions of constraint and search algorithms. The U.S. investigators bring to this collaboration expertise in algorithms and equational reasoning. This is complemented by the French investigators' expertise in programming languages, constraint-based reasoning, and term rewriting techniques. The problems under study have important applications in image processing, programming languages, and automated deduction.